U.S.-Italy Planning Visit: Cooperative Research on Apennine Tectonics

0109922
Cowan

This twelve-month award will provide support for Darrel Cowan of the University of Washington and seven co-principal investigators to plan a cooperative research project with Dr. Francesco Dramis at the University of Rome III on Apennine tectonics. The objective of the project is to review the US and Italian current and past research in the northern Apennines, formulate specific collaborative projects, and make a field excursion from Rome to the Bologna Apennines, to give all the co-PIs the opportunity to view together the terrain, rocks, and structures of their study area. With the cooperation of the Italian researchers, the subsequent joint project, "Retreating-trench, extension, and accretion tectonics (RETREAT): a multidisciplinary study of the northern Apennines," has the potential to be a world-class study area with important broader implications for other tectonic systems.